Transport and Relaxation Processes in Disordered Systems

Four problems in the area of electron transport and relaxation phenomena in disordered systems are discussed: 1) application of the generalised master equation to Anderson localisation, 2) polaron hopping in site-diaordered systems, 3) absence of lacalisation when bond-symmetric correlations exist between the site-diagonal and site-off-diagonal energies, and 4) spin-lattice relaxation below 1K.